NSF FF: Planning: A Student-Aware AI Platform for Connected and Contextualized K-12 Mathematics Support

This FINDERS Foundry award advances K-12 mathematics learning by enabling earlier identification of learning gaps, strengthening instructional decision-making, and enhancing meaningful parent engagement through connected, contextualized learning supports. By situating mathematics within students’ interests and lived experiences, the project increases relevance, motivation, and sustained student engagement in STEM. The interdisciplinary co-design process promotes responsible, human-centered AI development by actively engaging educators and families throughout system design and evaluation. The resulting prototype framework, stakeholder network, and design insights will establish a scalable foundation for future innovation in AI-enabled mathematics learning systems.

This FINDERS Foundry award advances the design of AI-supported mathematics learning systems through the integration of student aware learning support, contextualized mathematics learning, curriculum-grounded AI interactions, and multi-stakeholder educational coordination within a unified platform. The planning effort contributes foundational knowledge for stakeholder-informed design requirements, responsible AI considerations, interaction mechanisms, and preliminary system architectures needed to support connected and context-aware mathematics learning ecosystems. By integrating expertise from mathematics education, learning science, human-centered AI, and intelligent systems, the project is expected to establish a research foundation for future development of scalable and student-aware AI-enabled mathematics learning platforms. Investigating how AI systems can maintain evolving representations of student misconceptions, engagement patterns, and learning needs while supporting coordinated interactions among students, teachers, and parents across classroom and home contexts moves this project beyond existing AI tutoring approaches.